A Comparative Ecophysiological Approach to Understanding Multi-Species Mycorrhizal Functioning

Dighton 9723254 The PIs understanding of how biodiversity and ecological function are linked is not well understood. Ectomycorrhizal (plant-fungal) associations of tree roots provide an ideal model to study this linkage because ectomycorrhizal fungi are (i) widespread, (ii) may have different potentials to acquire nutrients and (iii) are affected by anthropogenic stresses, such as pollution. This project will be the first to detail effects of species diversity and composition of ectomycorrhizal fungi on tree seedlings growth and nutrient uptake. The PI will compare the ability of single and multiple infections of ectomycorrhizas to take up essential nutrients and determine whether this capacity is influences by mycorrhizal community structure. In this initial phase of the work the PIs' will prove their ability to use the two main proposed methodologies, that: (i) measuring the kinetics of P uptake into ectomycorrhizal mycelia in culture and on infected root tips; and (ii) production of tree root systems with defined community structures of 1, 2 and 4 species combinations of ectomycorrhizal fungi. Under the current budget, the PI will use only radioactive 32p in the uptake studies as it can be measured using on-site facilities Also because the PI can not purchase a climate-controlled growth cabinet, results from the initial trials may show a greater variability than originally intended.